CISE Research Instrumentation: Instrumentation for the Center for Spoken Language Understanding

This award is for the purchase of a file server and disk storage for research in automatic language identification, continuous letter recognition, telephone speech recognition and stochastic dynamics of neural learning. These research projects require frequent and repeated use of large amounts of data. The file server will be able to handle a large number of disks and heavy network traffic, and the disk storage will satisfy current storage needs. Network transfers of very large files used to train neural network classifiers can seriously strain an institution's disk/cpu server. The requested file server and disk storage will allow the Oregon Graduate Institute to handle a large number of disks and very heavy network traffic. The additional disk storage will satisfy current storage needs.